Studies of Electronic Relaxation and Coherent Control in Functionalized Semiconductors

Proposal Number: 0725118

Proposal Title: Studies of Electronic Relaxation and Coherent Control in Functionalized Semiconductors

PI Name: Batista, Victor S.

PI Institution: Yale University

The objective of this research is the continued development of methods to describe
quantum dynamics in extended semiconductor nanostructures, and the application of
these methods to explore ultrafast quantum dynamical phenomena associated with
photoinduced electronic excitations in TiO2 and ZnO nanostructures. The project
includes the characterization of photoinduced electron-hole pair relaxation pathways in
functionalized semiconductor surfaces; the investigation of photoexcitation methods for
laser manipulation of electronic relaxation; and the integration of the proposed research
with an outreach educational program for minority students.

Intellectual Merit: The approach is based on rigorous computational approaches
combining ab initio DFT molecular dynamics and quantum dynamics simulations of
electronic relaxation in fully atomistic models of functionalized TiO2 and ZnO surfaces.

Broad Impact: The resulting theoretical developments will impact studies of quantum
dynamics in semiconductor nanostructures in a wide range of applications in molecular
electronics, photooptic devices, imaging and memory units as well as in photocatalysis,
electrochemistry and artificial photosynthesis based on semiconductor materials with
common photoinduced electronic excitations. The proposed outreach educational
program naturally broadens the participation of underrepresentative minorities in the
physical sciences, benefits the educational infrastructure at Yale by creating a
multidisciplinary frontier research opportunity for students from various academic
departments, and creates a cyber-platform interface for the rapid exchange and
distribution of research findings, software developments and pedagogical materials.